Sound Synthesis and Analysis Laboratory

9351029 Hoffman This project is establishing a sound generation and analysis laboratory. A group of workstations provides non-science liberal arts majors in the Physics of Music course with the means to sample and analyze sounds made by a non-electronic musical instrument of their choice, followed by an attempt to synthesize one or more tones made by that instrument using a sophisticated computer synthesis program. The same workstations provide students in the speech signal processing curriculum of the Electrical Engineering department with the means to record short utterances and analyze them using Mathematica. The presence of machines with sufficient power and graphics display capabilities to run Mathematica significantly enhances the upper level offerings in the Physics department, allowing capitalization on an innovative program in the Mathematics department of teaching calculus by use of Mathematica. ***